Workshop on Power System Security Assessment

This workshop is to be co-funded 50/50 with EPRI and will bring together a select group of invited experts from both the electric utility industry and the university research community. The workshop is to be used by both EPRI and NSF in planning future research programs and to improve communication between the utilities, manufacturers and the university research community.